Probing Physics Beyond the Standard Model with Particle Cosmology

This award funds the research activities of Professor Soubhik Kumar at Tufts University. The Standard Model of particle physics explains a vast range of observations with remarkable precision. Yet it leaves unanswered two of the deepest questions about our Universe: what drove the brief period of rapid expansion known as cosmic inflation, and what is the nature of dark matter, the invisible substance that makes up about 85 percent of all matter? Many proposed explanations involve new particles that are too heavy or too weakly interacting to be created in laboratory experiments. The early Universe, however, reached energies far beyond those achievable on Earth, making it a unique laboratory for discovering new physics. This project will determine how very heavy particles were produced during inflation and identify the observable imprints they left behind. It will predict new signatures in the cosmic microwave background (CMB), the oldest light in the Universe, and determine how future gravitational wave observatories can test predictions from inflation. The project will also investigate how very weakly interacting particles associated with dark matter formed from the hot plasma after inflation. Together, these studies will deepen our understanding of cosmic inflation, dark matter, and the fundamental laws that govern our Universe. As a result, this research advances the national interest by promoting the progress of science in one of its most fundamental directions: understanding the origin, evolution, and composition of the Universe. The project will also have broader impacts by mentoring undergraduate and graduate students, engaging local high school students through outreach activities, and developing a particle cosmology course for non-science majors.

More technically, the PI will pursue three connected lines of research. First, using effective field theory, the PI will systematically classify the non-Gaussian signatures left by particles beyond the Standard Model (BSM) produced during inflation and develop new observational templates to broaden searches in current and future CMB surveys. Second, the PI will quantify how inflationary dynamics on small scales generates a scalar-induced gravitational-wave background and will develop a flexible numerical code to evaluate this signal in broad generality, maximizing the discovery potential of future gravitational wave observatories. Third, the PI will compute the cosmological "freeze-in" abundance of light BSM particles, motivated by dark matter models, and identify discovery prospects at future CMB surveys. Together, these three research thrusts combine quantum field theory with precision cosmological data to uncover longstanding mysteries about the origin and composition of our Universe.